Low Fidelity Sensing for Scalable In-Process Defect Characterization in Metal Additive Manufacturing

Metal additive manufacturing enables the production of complex, high-value components for aerospace, defense, energy, and biomedical applications. However, variations in process conditions can produce internal defects that are difficult to detect and characterize during fabrication, limiting part reliability and increasing manufacturing costs and material waste. While low-cost sensing modalities, including acoustic, thermal, electrical, and optical monitoring, are readily available for industrial deployment, the information they provide is often noisy, incomplete, and difficult to interpret across changing process conditions. High-fidelity sensing techniques remain costly and impractical for widespread manufacturing use. This award supports fundamental research to establish the scientific foundations for scalable, real-time defect characterization using accessible, low-cost sensing technologies. By advancing the integration of multimodal sensing, interpretable artificial intelligence, and manufacturing science, the project will enable practical in-situ quality assurance that improves manufacturing reliability while reducing inspection costs and material waste. The project will provide interdisciplinary training for graduate and undergraduate students, integrate intelligent manufacturing and artificial intelligence into engineering education, engage high school students through hands-on outreach activities, and publicly release multimodal datasets and educational resources that support research, education, and innovation in advanced manufacturing.

Current approaches to defect monitoring in metal additive manufacturing often rely on process-specific sensing configurations or expensive characterization techniques, limiting their scalability and industrial adoption. To address these challenges, this research will develop a unified sensing and inference framework that establishes the fundamental limits and opportunities for defect characterization using low-fidelity sensing. The project will combine synchronized multimodal sensing during fabrication with quantitative post-build defect characterization to identify latent process signatures associated with defect formation and quantify process-defect relationships across varying manufacturing conditions. Interpretable multimodal machine learning methods will be developed to investigate defect observability, characterize uncertainty, and determine when adaptive sensing and inference improve characterization accuracy under practical sensing constraints. Experimental validation on wire-based metal additive manufacturing systems, conducted across multiple machines and sensing configurations, will evaluate the generality and robustness of the framework. The resulting research will advance fundamental understanding of defect formation, sensing observability, and multimodal inference in additive manufacturing while establishing a transferable scientific foundation for scalable, real-time quality assurance in advanced manufacturing systems.